Summer Institution In Game Theory and Economics Workshops tobe held at the State University of New York, Stony Brook in the Summer of 1993-1995

This series of annual Summer Institutes in Game Theory and Economics is designed to stimulate and disseminate new advances in research on game theory and its applications and to make conceptual and methodological developments in game theory available to an expanding group of scientists in economics and other disciplines. Each year the month-long program of research-oriented conferences and workshops and an intensive course of instruction on a topic of major significance, complemented by a further period of informal research activities, will bring together a large international group of researchers - a mix of established scholars, junior faculty, and graduate students - whose interests represent a diverse array of theoretical and applied aspects of game theory. The programs proposed for 1993-1995 are a continuation of the series of Summer Institutes held at Stonybrook in 1990, 1991, and 1992, each of which attracted more than 200 participants. Formal activities include a five-day conference with plenary and parallel sessions, and invited and contributed papers; two weeks of workshops on selected themes; and one to two weeks of intensive instruction on selected topics. The value of this format and approach is evidenced by the success of the previous Institutes.